Active Selection of Training Examples for Network Learning

This project is concerned with techniques for active selection of training examples for neural network learning, while simultaneously growing the network to fit the data. The approach uses a statistical sampling criterion, Integrated Mean Squared Error, to derive a "greedy" selection criterion which picks the next training example that maximizes the decrement in this measure. This selection criterion is usable for a wide class estimators. A practical realization of this schemes for multi- layer neural networks is demonstrated. //